Engineering Research Equipment Grant: Microwave Assisted Chemical Vapor Deposition (CVD) System for Diamond Films/Coatings

Matching funds will support acquisition of a chemical vapor deposition system for study of diamond films and coatings. The relationship between fundamental processing parameters, substrate adherence, and tribological performance will be studied in detail with the goal of optimizing the tribological properties.